Beaconing Bar Codes

9800821 Woo This project will study locating objects without the line of sight amidst obstacles by means of an active tag. Upon a wake-up signal which identifies the object of interest, the tag beacons. The goal is to create an indoors global positioning system which is efficient, robust, and low-cost. The operating environment is assumed to be in a computer aided design format. There are two challenging research issues: (1) multiple paths of reflection; and (2) exponential growth of solutions as a function of the number of reflections. A mathematical structure involving prime numbers will be developed to enable efficient determination of the source location from the reflected signals. If successful, this research will lead to the development of an indoors global positioning system with applications in warehouses, hospitals, and libraries where needed items are often misplaced. On-line scheduling in factories, tracking of luggage at airports, locating personnel in office complexes may also become feasible with this technique.